Oceanographic Instrumentation

0099791
Willis
This award to Oregon State University provides instrumentation to significantly improve the oceanographic research capabilities of the institution and the research vessel Wecoma, an NSF-owned ship operated by OSU as part of the University-National Oceanographic Laboratory System research fleet. The winch supported here will allow much more efficient use of the vessel in surveying, as it allows use of a fiber optic cable system, and upgrades existing capabilities so that shallow and deep operations may take place during the same, synopic surveys. The other item, a time domain reflectometer (TDR), will allow rapid identification of the location of tow cable failures, and thus save time and effort during survey operations when cable problems arise. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2001 and future years.
***